An Atypical Calcium Dependent Protein Kinase Homologue in Carrot and Arabidopsis

9305321 Choi A variety of environmental signals that influence plant growth, such as light, gravity and wind cause transient calcium fluxes in plant cells. To understand how plants respond appropriately to the different environmental stimuli that employ calcium as a common second messenger, it is necessary to characterize the intracellular calcium receptors, their functions, and their distribution in various plant cells, organs, and tissues. This laboratory has cloned a gene for a calcium-dependent protein kinase (CDPK) that has its own calcium receptor in the form of a C-terminal calmodulin-like domain with 4 EF-hand motifs. CDPK appears to be the plant homologue of the calcium/calmodulin-dependent protein kinases in animals. A CDPK related kinase (CRK), whose C-terminal domain has diverged, with nonconservative substitutions in the EF- hand motifs has also been cloned. Other features in the CRK sequence predict that CRK may be myristoylated, possibly for membrane localization, and that CRK may be phosphorylated by CDPK and/or cell-cycle kinases. Distinct homologues of CRK and CDPK appear to be present and in both monocotyledonous and dicotyledonous species, implying that both have conserved functions. This research will use a variety of molecular and biochemical approaches to characterize further the structure and function of these enzymes and to test the hypothesis that CDPK and CRK are involved in transduction of intracellular calcium signals. It will be determined whether CDPK and CRK are differentially expressed in plant tissues and organs that respond to stimuli that evoke calcium fluxes, and whether the levels and specific activities of CDPK and CRK respond to changes in intracellular calcium levels. The significance of CRK sequence features will be tested by determining whether they are conserved in Arabidopsis CRK homologues and by direct biochemical characterization. This research will examine whether CDPK and CRK are involved in intracellu lar calcium signaling, and provide insights into how their roles may differ. %%% A variety of environmental signals that influence plant growth, such as light, gravity, and wind, cause transient calcium fluxes in plant cells. To understand how plants respond appropriately to the different environmental stimuli that employ calcium as a common second messenger, it is necessary to characterize the intracellular calcium receptors, their functions, and their distribution in various plant cells, organs, and tissues. This laboratory has cloned genes for two calcium-dependent enzymes that are likely important in the signal transduction pathways involving calcium. The goals of this project are to characterize these enzymes further and study their function in plants. The results of this research will increase our understanding of cellular calcium receptors and how plant cells respond to changes in their environment. ***